Miami Conference on Geometric Analysis, Nonlinear Wave Equations, and General Relativity; Miami, FL

Abstract

Award: DMS-0401925
Principal Investigator: Lars Andersson

This award provides partial support for graduate students
and early career researchers attending the Miami Conference
on Geometric Analysis, Nonlinear Wave Equations, and General
Relativity.

Much of the mathematics relevant to the study of gravitation from
geometric points of view also appears in other problems,
especially the study of nonlinear differential equations modeling
wave motion. This conference at the University of Miami is the
first of a projected series on important problems and recent
developments in these areas.